First Pan-American Workshop on Computational and Applied Mathematics; Caracas, January 1993

This Science in Developing Countries award will support a regional research workshop in the area of applied and computational mathematics. The workshop has been organized by Professor Jose Castillo of San Diego State University together with Professor Luis Leon of the Universidad Central de Venezuela. The purpose of the workshop is to bring together practicing applied and computational mathematicians in the Americas to exchange information, foster cooperation, and promote the development of applied mathematics, especially in Latin America. It is expected that the workshop will also lead to the establishment of applied mathematics societies in Venezuela and in other Latin American countries. By helping to bring together applied mathematicians to discuss a topic of increasing importance in the region, this award fulfills the objectives of the Science in Developing Countries Program.